Acquisition of an X-Ray Diffractometer

This award is for the acquisition of a modern x-ray diffractometer with wide angle goniometer, texture and thin film analysis attachments, a germanium detector, and PS/2 computer for data acquisition and search/match capability. The instrument will be dedicated to research efforts of investigators in the Department of Materials Science and Engineering, it will be maintained and operated in the Center for Electron Microscopy and Microanalysis, which is used by 5 schools and 14 departments on the campus. User fees will be applied to maintenance and operation costs. Examples of research programs making use of the instrument include: growth of crystalline organic semiconductors; deformation twinning of ordered alloys; ordering of A-site cations in perovskites; photonic materials and device studies; studies of the structure of semicrystalline and filled polymers, and changes in molecular orientation in polymers.